Physics of Strong Disorder and Correlation

In the past three years they have made significant progress in the study of conductence fluctuations in small devices (mesoscopic physics) and in understanding the metal-insulator transition in terms of the scaling of Fermi liquid parameters. They will extend the studies of mesoscopic physics to the quantum Hall regime. They will study finite size corrections to the Quantum Hall Effect and perform finite size scaling studies of the behavior of the extended state. For fractional Hall steps, their analysis of the data suggests the existence of a novel fractionally charged Fermi liquid state which they hope to describe microscopically, For the metal-insulator transition problem, they propose to study the critical behavior of the Hall constant to see if it can be fitted into the Fermi liquid framework. They will also study the cross-over from hopping to conducting behavior in layered materials, a problem of considerable interest in the oxide superconductivity community.